Development of Bioerodible Polymer Matrices for Osteoblast Growth and Maturation

This research grant will support the development of a biodegradable polymeric matrix that would support the growth of osteoblasts and osteoblast precursors. The intent is to have simultaneous polymer degradation and cell growth and maturation leading to the generation of bone-like tissues. The objectives are 1) to design and develop degradable three-dimensional matrices of polymers and polymer/ceramic materials and to fully characterize these novel matrices; 2) to seed osteoblast cells onto the newly created three-dimensional biodegradable polymer matrices and study osteoblast adherence and growth in vitro; and 3) to study osteoblast-polymer matrices in an in vivo environment characterizing their ability to be osteoinductive or osteoconductive. This research is important since it could lead to the development of new materials for use in non-unions of bones, surgical arthrodeses, cranio-facial defect procedures, and coating for orthopedic implants.